RI: Small: Collaborative Reference in Open Domains

Reference, the ability to single out objects in the world using
linguistic expressions, is a fundamental part of communication.
Cognitive scientists have showed that people collaborate on reference,
for example by negotiating about how to describe things. This project
lays the groundwork for computer systems that can do the same.
Eventual applications range from talking robots that can communicate
with people in real physical environments, to tutoring and
decision-support systems that can give comprehensible explanations of
specialized concepts. These applications are open domains, in the
sense that one interlocutor, or both, may have no simple descriptor
for an unfamiliar object. So the system has to have flexible
strategies for describing things in words and inference mechanisms
that acknowledge the possibility of a misunderstanding by either
system or user.

This project undertakes exploratory work on the communicative
strategies and inference mechanisms required for collaborative
reference in open domains. During the academic year, PI Stone works
with a computer science student to extend a prototype system with
additional methods for collaborating under uncertainty, drawing on the
student's ongoing research in cognitive modeling, planning and
learning. During the summer, Stone works with a three-member
interdisciplinary team doing corpus analysis, grammar development and
integration to characterize generic strategies for describing shape,
using rough descriptions and part-whole relationships. The results
are an open-source prototype with more general collaborative reference
abilities along with specific hypotheses, informed by publishable
linguistic and conceptual analyses, about how these abilities might
affect the system's success in referring to unfamiliar objects.